Regulation of Cataract Formation by the Matricellular Protein SPARC

Abstract EEC-9814404 Sage The purpose of this award is to expand the intellectual scope of the ERC for Engineered Biomaterials by establishing a research collaboration with a well-renowned investigator at Wilstar Institute, University of Pennsylvania. Cataracts are the primary cause of blindness. As most adult cataracts have multifunctional etiology, understanding of the regulations of lens transparency is fundamental to treatment of this complex disease. The primary objective of this collaborative project is to delineate the mechanisms underlying cataractogenesis in mice bearing a targeted disruption of gene encoding the protein SPARC, a critical regulator of cellular adhesion and proliferation.